SCC-PG: ECET: Empowering Community-centric Electrified Transportation

Electrified (E-) transportation is rapidly gaining popularity in metropolitan areas to address environmental and sustainability issues induced by urbanization. Ongoing efforts by individuals, transit agencies, and local governments are increasing the availability of E-transportation modes (E-buses, EVs, and E-scooters). This transition could introduce an unprecedented opportunity to improve regional transportation and electricity systems, as well as promote socio-economic growth in urban space. To realize the potential of E-transportation, it is necessary to pursue an interdisciplinary approach and continuous engagement with stakeholders. This project will build a collaborative team to investigate an E-hub concept that seeks to convert transit centers to host various E-modes. The team will collaborate with the public transit agency, regional electric utility, and city government in Austin, Texas to explore the potential of using E-hubs to support urban infrastructure and address social equity issues. This planning activity will benefit our partners with actionable results and ultimately contribute to the development of a large-scale study.

This project will investigate an E-hub concept through a collaborative pilot study on its impacts on urban infrastructure and socio-economic growth. The goal is to develop integrative solutions to promote E-transportation at the scale of urban communities. Using real data sets provided by our partners, we propose three cohesive research thrusts: T1) Locating the E-hubs by developing traffic models with improved resolution and addressing transit equity issues; T2) Powering the E-hubs by considering emerging energy resources and intelligent charging for grid support; and T3) Studying community-level effects of E-hubs, focusing on potentially distributing the impacts across the whole community. The team will closely work with our partners (City of Austin, CapMetro, and Austin Energy) to facilitate the adoption of E-hubs in our community through regular discussions and feedback collection. We will also organize faculty-industry workshops through UT’s Energy Institutive to reach out to industry stakeholders, policymakers, and the public.